Purchase of a Scanning Probe Microscope

This award from the Chemistry Research Instrumentation and Facilities program is to aid the Department of Chemistry at University of Colorado at Boulder in the purchase of a scanning probe microscope (SPM). This instrument will be used in the following research programs: 1) Heteroepitaxial 2-D crystals on highly oriented pyrolytic graphite which grow under liquid crystal films; and Self-assembled monolayers on glass. 2) Synthesis and topographic characterization by SPM of chemically deposited films. The scanning probe microscope (SPM) enables researchers to image atoms directly. The technique uses the piezoelectric effect which involves bringing an extremely sharp metal needle within a few angstroms of the samples surface. The distance is small enough for electrons to leak or tunnel across the gap and generate a minute current. As the gap between the tip and the sample increases, the current decreases. As the probe crosses the sample, moving back and forth across its surface, the probe traces out a contour map of the sample's surface atoms. The SPM is used in the control of material used to fabricate semiconductor circuits.